Internation TOGA Project Office Periodic Reports

The purpose of this interagency transfer to the National Oceanic and Atmospheric Administration is to provide support to the International Tropical Ocean and Global Atmosphere (TOGA) Project Office of the World Meteorological Organization in Geneva.